Adaptive Markov Chain Monte Carlo methods

This award is funded under the American Recovery and Reinvestment Act of
2009 (Public Law 111-5).

Markov Chain Monte Carlo (MCMC) is a flexible computational technique that
has proven very useful to many scientific disciplines and is the backbone
of current implementations of Bayesian inference. Recent research
developments suggest that the use of adaptive methods can make Monte Carlo
algorithms considerably more effective. This research proposal has two
major components. The first part will contribute to the development of a
limit theory for adaptive MCMC algorithms. More Specifically, the PI will
develop a resolvent-based martingale approximation technique to investigate
the central limit theorem and the asymptotic variance estimation for
various adaptive MCMC algorithms. The second part of this research activity
will develop a new MCMC algorithm for the Bayesian analysis of statistical
models with intractable normalizing constants, a topic that currently poses
major computational challenges. This part of the research is driven by the
protein design problem in computational biology but the same problem also
frequently occurs in many other statistical models including Markov random
fields, Markov point processes.

Markov Chain Monte Carlo is a well-established Monte Carlo technique for
sampling probability distributions. The method is used widely to solve
substantive problems in many areas of applications. It is especially useful
in situations with high-dimensional data, which is increasingly common in
science and engineering research as well as applications. Thus, the
research developments from this project can have a significant impact on
methods for doing statistical inference in these areas. Through its
theoretical component, this research project will advance the general
understanding and strengthen the use of adaptive Monte Carlo methods in
practice. In the course of developing the asymptotic theory, the PI will
develop original extensions to some well-established probabilistic tools.
The research is also proposing a new algorithm to tackle one of the most
challenging current problem in Monte Carlo simulation; sampling from the
posterior distribution of statistical models with intractable normalizing
constants.